Racial Residential Segregation, Social Isolation and Homicide

9320701 Krivo This is a study of racial residential segregation, social isolation and homicide. It will examine the extent to which black and white urban homicide rates are a consequence of the high levels of racial residential segregation in American cities. Research will assess two sets of hypotheses: 1) Which of a variety of aspects of residential segregation are related to race-specific patterns of homicide in central cities. 2) What specific factors link racial residential segregation to rates of lethal violence. The primary data are from the 1980 and 1990 censuses of population and homicide incidence files compiled by the Federal Bureau of Investigation, and the samples will consist of central cities with at least 100,000 population and 5,000 blacks for each year. %%% This research will illuminate how and why the high levels of racial residential segregation found in most American cities are related to one of the most serious urban problems: high homicide rates, especially for African-Americans. The study will also advance our understanding of the consequences of concentrated poverty and social isolation of urban blacks by assessing to what degree these pattern contribute to criminal violence. ***